The Science Behind Medicine: The Shape of Things to Come

This project at the North Carolina Museum of Life and Science, Durham, North Carolina, will create a 2000 square foot permanent exhibition, "The Science Behind Medicine", using recent advances in medical science and technology to illustrate basic science concepts. It will engage visitors through their strong interest in health and medicine, present valuable information about medical subjects, and use their interest to present underlying scientific concepts they would otherwise avoid. The exhibition will be organized around four topics: organ structure and function and organ replacement and transplantation; advances in medical imaging, including infrared, ultrasound and x-ray technologies; pharmaceutical pharmacology, biological receptors and molecular design; and sickle cell anemia and its molecular biology. Over five years, more than one million people will use the exhibit, including both highly educated residents of the Research Triangle area, and a Durham population that is disadvantaged and 50% black. Extensive subject area consultation and formative evaluation will be used in exhibition design. A close consulting relationship is planned with two museums with similar exhibit interests, and exhibit research and plans will be offered to other interested museums to encourage wider use of the project's results. A strong regional health sciences focus will benefit the project through academic, business, community and industry membership on a project planning committee, and from 50% local matching funding. Two corporate planning grants have been awarded to the project, and a major facilities expansion funded in part by a recent bond issue.